Problems in Extremal Combinatorics

This project has two parts: an investigation of the
independence numbers of the powers of fixed graphs
and a study of the emergence of a giant component in
`guided' versions of the classical random graph. The
first part is motivated by the many open questions
regarding the Shannon capacities of graphs and focuses
on the possible behaviors of the sequence given by the
independence numbers of the powers of a fixed graph.
The odd cycles and their complements are particularly
important examples and play a central role in this part
of the project. While a wide range of techniques --
including algebraic methods -- may be useful here,
recent progress has come through the interplay of novel
constructions for, and structural conditions imposed on
large independent sets in these graph powers. In the
second part of this project we study the component
structure in the random graph processes known as
Achlioptas processes, processes in which a pair of
random edges is presented in each round and an on-line
algorithm chooses between them. Here we are interested
in the existence, timing and nature of a phase
transition in the size of the largest component. A
principle tool here is the differential equations
method for establishing concentration in random graph
processes.

This research is in the area of extremal combinatorics.
Questions considered in this field are of the form: `How
large (or small) can an object that lies in a particular
discrete mathematical system and satisfies a certain
condition be?' We are often concerned with the behavior
of the size of the extremal objects as the size of the
underlying system goes to infinity. Interest in such
questions grew extensively during the twentieth century.
Pioneers of the field, such as Paul Erd\H{o}s, posed
many fascinating questions of this form and devised
powerful methods for solving them even before the close
connections between extremal combinatorics and various
other fields (including theoretical computer science,
statistical physics and information theory) were
discovered. The Shannon capacities of graphs are a
classic example of the close interaction between
extremal combinatorics and the theory of communication.
The Shannon capacity gives a measure of the optimal
zero-error performance of a noisy communication channel
and is centrally important in information theory. At
the same time, it gives rise to natural questions in
extremal combinatorics and graph theory. Some of these
questions are addressed in this research project.